Collaborative Research: P-adic Variation of Supersingular Iwasawa Invariants

Abstract for collaborative award DMS-0439264 and DMS-0440708 of Pollack and Weston:

Iwasawa theory is concerned with the relation between the Galois theoretic
and p-adic analytic aspects of arithmetic objects. The investigators
propose to study the Iwasawa theory of modular forms with supersingular
reduction. A primary focus of this work is the behavior of Iwasawa
invariants in p-adic analytic families of modular forms such as the
eigencurve of Coleman and Mazur. In fact, the definitions of these
invariants, well known in the ordinary case, are not yet known in general
in the supersingular case. In order to define and study the algebraic
Iwasawa invariants the PI's intend to use the p-adic Hodge theory of
Fontaine to study the growth of Selmer groups of modular forms over
cyclotomic fields. The definitions of the analytic invariants should be
related to special values of modular L-functions; exhibiting the desired
behavior in families will involve a study of congruences of special values
of modular L-functions, a recurring theme in much recent work. An
eventual goal of this project is to show that the main conjecture of
Iwasawa theory can be checked for an entire family by checking it for a
single form in the family. The investigators also intend to study the
generalization of the Riemann-Hurwitz type formula of Kida, Hachimori and
Matsuno, which describe the change in p-adic Iwasawa invariants over
p-extensions of number fields, to modular forms of higher weight.

Number theory, often considered the oldest mathematical discipline, has in
recent times developed remarkable applications to cryptography. Many of
these applications involve arithmetic geometric objects known as elliptic
curves. Modular forms, the primary object of study in this proposal, are
generalizations of elliptic curves which play a fundamental role in modern
number theory. The questions investigated in this proposal deal with
invariants which are closely related to those of interest in cryptography
and may perhaps yield some insight into them.